50 Years of Scientific Achievement and Future Directions at Arecibo Observatory - A Science Symposium

The 50th anniversary of the inauguration of the Arecibo Observatory is a landmark event for
one of the nation’s storied and most significant federal scientific facilities. To mark the
anniversary, SRI International (SRI) proposes a science symposium that will both celebrate
and publicize the Observatory’s past accomplishments, current investigations, and importance
to future exploration. Keynote speakers will review the Observatory’s 50 years of scientific,
engineering, and educational accomplishments in Ionospheric and Atmospheric Science, Radio
Astronomy, and Planetary Radar Astronomy. Presentations by active users will survey current
research activities, and moderated forums will offer the opportunity to discuss strategies
for the future scientific direction of the facility.

The symposium will facilitate the exchange of scientific findings, insights, and techniques
across the interdisciplinary community that uses the unique observational resources of Arecibo
Observatory. Such conversations are likely to stimulate ideas for expanded investigations
and spark interest in novel explorations, resulting in increased and more diverse applications
for the Observatory’s instruments.

The broader impact of the symposium flows from the educational and outreach missions of the
Observatory, and the global economic and ethnic diversity provided by a U.S. federal facility
located in Latin America. Extensive public press coverage of this event will communicate our
scientific and educational activities to an extensive, diverse community. The symposium will
present rich scientific content, provide a pivotal point in strategic planning for future
achievement, and recognize and appreciate the scientists and engineers who developed and use
this national treasure.